Dynamic Negotiating Agents in Mobile Computing

With the advent of third and fourth generation wireless infrastructure, and the simultaneous emergence of pervasive connectivity for all devices based on bluetooth like systems and ad-hoc networks, a new vista is open for research in the area. We propose ideas for a research program aimed at realizing ubiquitous computing systems) which are located in vicinity of one another. These systems will be composed of a collection of independently designed components that automatically become aware of each other, establish basic (wireless) communication, exchange information about their capabilities and requirements, discover and exchange APIs, and learn to cooperate effectively to accomplish their individual and collective goals. The proposed work will enable a new class of applications that effectively use mobility and pervasive computing. We address several research problems that span the fields of distributed computing, data management, and dynamic collaboration between components. The team of researchers is located at UMBC and UI-Chicago, and plans to interact closely with collaborators at industrial labs (IBM, Hughs, Sun).